Next-Generation Terabit Lightwave Networks

This research will investigate both single hop and multihop architectures for terabit networks. The approaches will exploit the characteristics of WDM lightwave technology so that efficient protocols and easily-reconfigurable architectures can be developed. For single-hop systems, the PI will examine both control-channel-based and non-control-channel-based protocols and integrate packet-switched protocols as well as mechanisms to accommodate circuit-switched traffic. The approaches will employ realistic assumptions on optical component characteristics (e.g., nonzero transceiver tuning times), and they will be aimed at supporting a multiuser base (possibly 1000's) which can be time-varying scalable. For multihop architectures, the PI will investigate optimal node placement in regular structures to suit nonuniform traffic conditions. In addition, he will study dynamic reconfiguration algorithms of the embedded virtual network topology to combat changes in the offered traffic conditions and explore alternative multihop architectures for suitability of application to optical networks. The PI will also consider if various single-hop and multihop systems can be compared in a meaningful fashion (assuming equivalent system parameters). He will try to develop techniques which will to understand under what circumstances a given architecture may be considered superior to others.